MGR Honorable Mention: Sylvia R. Nieto

This special award will give Sylvia Nieto additional flexibility in pursuing her graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.